Blow-up, Quenching and Absorption Solutions of Nonlinear Volterra Equations

9510082 Roberts This work is supported by a Research Planning Grant for Women Scientists and Engineers Award. Appropriate Volterra equation formulations for a variety of new problems will be examined with tools from applied, functional and asymptotic analysis. This research seeks, for example, sufficient conditions for the onset of the phenomena, lower and upper limits for the critical time, the behavior of the solution in the key limit and the nature of the blow-up (quenching, absorption) set. The National Science Foundations mandate to ensure the vitality of the Nations scientific enterprise includes concern for the quality, composition, distribution and effectiveness of the human resource base in science and engineering. Within this context, the Foundation is committed to enhancing the current rate of participation of women in science and engineering careers, in general, and as active participants in all of its programs. Research Planning Grant awards are made: (1) to help increase the number of new women investigators participating in NSFs research programs; and, (2) to facilitate preliminary studies and other activities related to the development of competitive research projects and proposals by women who have not previously had independent Federal research funding. Research Planning Grants are one-time awards that may be used for preliminary work to determine the feasibility of a proposed line of inquiry, and/or for other activities that will facilitate proposal development.